SMALL GRANTS FOR EXPLORATORY RESEARCH (SGER): DEVELOPMENT AND USE OF A VISUALIZATION TECHNIQUE TO BETTER DEFINE MECHANISMS FOR PARTICLE TRANSPORT IN POROUS MEDIA

0551834
Germaine

Understanding particle transport in porous media is important to a number of
problems involving subsurface flow and transport, water and waste-water treatment, and
soil pedology. The migration behavior of particles in porous media is complex. Factors
influencing this behavior include the particle density, size and surface chemistry, the
water chemistry, the interstitial velocity, and the characteristics of the porous medium. In
the case of biological particles, motility, chemotaxis, growth and decay are also
influential.
Considerable insight into particle transport in porous media has been gained from
experimental programs based on batch and column testing. Nonetheless, work of this
nature cannot resolve, in real-time, the processes governing particle transport in the
interior of a porous medium. This limits the scale of understanding that can be gained
from such experimental approaches. In order to further understanding of the fundamental
processes governing particle fate and transport in porous media, alternative methods that
involve visualization studies of particle behavior within a porous medium are needed.
In prior work, the Investigators of this proposal developed a visualization
technique to study particle behavior in the interior of a porous medium. Use of this
technique enabled the proposition of new hypotheses regarding particle transport
behavior. The goals of this exploratory research project are to further the new
visualization technique, and to provide further support for the emerging hypotheses on
particle transport behavior. Specifically, the project will:
1. Extend the new visualization technique to enable better resolution of particle
behavior, including resolution of individual particle tracks at the micro-scale and
distinction between aqueous and solid phase particles at the macro-scale.
2. Prove, irrefutably, that, during non-Brownian particle transport under
unfavorable electrostatic conditions, observations of decreasing particle attachment rate
with transport distance are attributable to the early filtration of heavier particles as a
result of gravitational sedimentation, and
3. Establish the impact of flow direction on particle transport for micron-sized
particles whose behavior is, theoretically, dominated by Brownian motion.
Broader Impacts The proposed research will provide a visualization tool that can
spatially and temporally resolve microscopic and macroscopic particle concentrations in
the interior of a porous medium. The research will also improve understanding of
attachment and detachments mechanisms that impact particle interaction with a medium's
solid phase. In particular, it will provide an explanation for why irreversible particle
attachment rates decrease with transport distance under unfavorable electrostatic
conditions. Research training will be provided for one graduate student. Undergraduate
students will also be engaged in the research through MIT's Undergraduate Research
Opportunities Program.